Estimates of Fourier Transforms and Applications

The goal of the project is to investigate the behavior of
Fourier transforms under various restrictions and to obtain
sharper estimates of Fourier transforms and Periodizations.
The research will be focused on two main objectives. The
first one is to obtain new versions for the Uncertainty
Principle in Harmonic Analysis. The Uncertainty Principle
is a statement which says that a function and its Fourier
transform can not be simultaneously concentrated on small
sets. The famous Heisenberg Uncertainty Principle in
Quantum Mechanics is one of the examples of the more general
Uncertainty Principle in Harmonic Analysis. In particular,
the investigator will study functions with Fourier
transforms supported on sets with certain type of densities
to get new versions of the Uncertainty Principle and apply
the results for Partial Differential Equations and Signal
Processing. The second objective is devoted to the relation
between functions and their periodizations over integer
lattices in higher dimensions. Periodizations are often
used in Harmonic Analysis as a link between Fourier series
and Fourier integrals. They arise in problems having
periodic structure that is why they are an important tool
in such applied sciences as Electrical Engineering, Signal
Processing and Crystallography.

In this proposal the investigator studies various
properties of Fourier transforms. The Fourier transform is
a major mathematical tool extensively used to represent,
convert and recover digital data, information and signals
in Signal Processing, Computer Science and Electrical
Engineering, Crystallography and Tomography. The author
proposes to further investigate properties of Fourier
transformations which should lead to a deeper understanding
of the behavior of Fourier transforms under various
restrictions. The development of the proposed Uncertainty
Principle in Harmonic Analysis will lead to tools to determine
how much information is sufficient to recover signals and
data. In return, this study of Fourier transforms will give
new techniques not only in theoretical areas such as
Mathematical Physics, in particular, Partial Differential
Equations but also in applied sciences such as Image
Processing, Electrical Engineering and Numerical Methods.